Proxy Calibration and Holocene Climate Variability in the Santa Barbara Basin

Original Message-----
From: Poore, Richard Z
Sent: Thursday, July 12, 2001 8:58 AM
To: Weller, Margaret
Subject: summary for Thunnell award

Science Summary: This proposal requests continued funding for ongoing time series sediment trap studies in the Santa Barbara Basin to calibrate climate proxies. The continuation of the sediment trap effort will establish a time series that is sufficiently long to document how well faunal and isotopic changes in planktonic foraminifers record interannual climate variability associated with ENSO.